Proposal Processing and Travel Support to Office of Polar Programs, National Science Foundation

This contract award is made following offers received in response to NSF solicitation GEO 90-110. Full and open competion was provided for in accordance with the Federal Acquisition Regulation. The solicitation calls for a contract to provide the National Science Foundation with program support services that fall within three (3) broad tasks: A. Proposal processing, data entry and distribution support; B. Proposal review process, panel, and documentation support; and C. Preparation of analyses, studies, and reports. Program support services will be provided to the Division of Polar Programs and other NSF Offices and Divisions (with respect to item A above) on a task order basis for specific services.